Catalyzing Advancement of Science Students

The project will contribute to workforce development by training the next generation of geoscientists to address pressing state and national needs. Participants will have the opportunity to participate in outreach and community engagement, and professional development training in geoscience. Students will hone their leadership skills, contributing to enhanced academic achievement, retention and career success.

Professional development is embedded throughout all components of the project in multiple ways: through proposal writing, following guidelines, addressing peer reviews, executing the activities (which will build technical and non-technical skills), developing and managing activities, preparing reports, and optionally, serving as a peer mentor. Professional development will lead to increase retention and success in geoscience careers, establishing new community partnerships, and to stimulate interest in geoscience and attract new talent to geoscience pathways.